Partnerships For Change: Project Linkage

The major goal of Project Linkage is to increase the number and effectiveness of Wisconsin partnership programs that stress science and mathematics education. The Wisconsin Academy of Sciences, Arts, and Letters plans to accomplish this task by (1) identifying existing appropriate partnerships, (2) developing a framework for improved understanding of the initiations, implementations, and outcomes associated with these partnerships, (3) conducting and disseminating case studies for specific partnership components, (4) creating a climate for the awareness and importance of existing partnerships, (5) encouraging and assisting the formation of new partnerships, and (6) developing a continuing linkage of existing and projected partnerships through a newsletter and annual conference.